NSF Student Travel Support for the 27th IEEE International Conference on Network Protocols (IEEE ICNP 2019)

This travel grant is to support US graduate students to attend 2019 IEEE (Institute of Electrical and Electronics Engineers) International Conference on Network Protocols (ICNP), a premier conference covering all aspects of network protocol research, including design, analysis, specification, verification, implementation, and performance. IEEE ICNP 2019 will be held in Chicago, Illinois, USA in October 7-10, 2019.

This award will support approximately fifteen students. The critical contributions of this award is that students (including first-time attendees, from under-represented groups, and minority students) will be able to attend the IEEE ICNP 2019 and affiliated events, including main conference, workshops, posters and demos. By attending a high quality conference, the students will have the opportunity to meet and learn from experienced researchers.